Predicting Life History Decisions in Communally Breeding Primates

9318900 James Dietz During its lifetime, an individual primate faces an array of critical life history decisions, such as mate choice and timing of dispersal and reproduction. The outcome of each of these decisions impacts directly on survivorship and fecundity, and natural selection should favor those individuals that make appropriate choices. Primate research has rarely been at the forefront in evolutionary biological work, because of a) their longevity, b) their complex social behavior, and c) their relatively low population numbers. This study, by contrast, on the golden lion tamarins in Brazil, has developed a research system that permits circumvention of these obstacles. The investigators have identified the critical life history junctures for this species, and have documented a good many rare variations. They believe that it is the exceptions to common patterns that hold the key to understanding the factors that shaped the evolution of life history traits. During the next three years, they will intensify the study of variation in choice for several critical life history decisions, and test them with strict hypothesis tests. The long term goal of the research is to construct a model based on evolutionary and ecological theory that will allow us to predict individual choice at these decision junctures.